Elemental uptake in marine calcium carbonate minerals for paleoenvironmental research

Calcium carbonate (CaCO3) produced by certain marine organisms contains numerous elements as impurities. The abundance of those impurities often correlates with key seawater parameters such as temperature. This serves as the basis for marine CaCO3 fossils to be used as archives (“paleo-proxies”) for past changes in marine environments. Such archives help improve future forecasting. Yet the underlying reasons driving those correlations and their validity are often difficult to address. This project will derive robust functional relationships between elemental uptake in CaCO3 and physical/chemical conditions of mineral precipitation in seawater to improve the accuracy and application of these paleo-proxies through high-quality experimentation. The project will mentor undergraduate and graduate students and develop new online outreach materials for school students.

Inorganic CaCO3 precipitation experiments can offer useful insights into physical/chemical controls on elemental uptake without biological imprints. However, most of the prior work used simplified solutions compositionally far from seawater and/or focused on only a few elements. In this project, both calcite and aragonite (two of the most common CaCO3 polymorphs in biominerals) will be separately produced in artificial seawater under identical conditions to study simultaneous uptake of a suite of paleoceanographically-relevant elements as a function of systematic changes in temperature, salinity, pH, and calcium and total dissolved inorganic carbon concentrations. The experimental work aims to produce comprehensive datasets that will be a benchmark for comparison of elemental impurities in CaCO3 biominerals to infer how and to what extent biological factors during biomineralization influence paleo-proxies.